Postdoctoral Fellowship: EAR-PF: Investigating fire and drought as drivers of prairie-forest ecosystem boundaries in the Midwestern US

Midwestern prairies are a valuable national economic resource providing numerous beneficial ecosystem services to society. Understanding how environmental drivers regulate where prairies thrive is crucial for effective management of these important national ecological resources. This project will use well-documented spatial shifts in the distribution of prairies in the Midwestern US over the last 10,000 years as a natural experiment to test how wildfire and drought have determined the prairie-forest ecosystem boundaries. This project serves the national interest by providing information to help develop more effective strategies to address landscape degradation and to support restoration efforts, thereby minimizing economic losses and preserving prairie resources for future generations. More broadly, the results will be used to support sustainable land management and strengthen societal resilience to natural hazards such as wildfire and drought.

This study will investigate the complex dynamics maintaining vegetation boundaries between distinct prairie and forest biomes in the Holocene Midwestern US. This project will identify the driving mechanisms of ecotone shift and determine if fire-hydroclimate interactions were agents of ecological disturbance, by applying novel biomarker techniques to reconstruct fire, rainfall, and vegetation shifts through time and space. This work will be conducted using samples from four previously drilled lake sites along a transect through the modern prairie-forest ecotone in Minnesota, USA. By extracting new information from archived sediment cores, this project increases the scientific return on initial NSF-supported drilling and curating investment. In addition, this project will include a component of student mentorship in prairie conservation as well as public education and outreach activities via collaboration with the Chicago Botanic Garden.